A Teacher Training Program in Biology: The Science, Techniques and Ethics of Molecular Biology

This program is designed to provide enhancement training for seventy-two inservice high school biology teachers in recent discoveries in molecular biology and biotechnology. This program will provide training at three sites in northern California, San Francisco State University, University of California, Santa Cruz and California State University, Sacramento. Teachers will be involved in a two-week intensive workshop, using materials developed at Cold Spring Harbor, plus a three day science and society symposium in which issues arising from the new biotechnology will be discussed with a view toward inclusion into a high school biology class. Less well prepared teachers will spend four additional days in a preworkshop at San Francisco State to enable them to keep pace with their colleagues who have a deeper background in biology. Curriculm guides will be devloped to facilitate in the integration of this material into the curriculum in participants, schools. A good follow-up schedule will provide them with the resources to implement this program.